Mathematical Problems in General Relativity

General Relativity has very important long term goals among which
the weak and strong cosmic censorship, final state and stability of Kerr
conjectures are the most outstanding. To complete such goals one
needs to solve many fundamental difficulties among which the PI proposes
to concentrate on the problems of uniqueness and stability of the Kerr
family as well as the bounded curvature conjecture. The PI intends to
continue his work with A. Ionescu, and more recently S. Alexakis, to
remove the restrictive real analyticity assumptions of the well known
results of S. Hawking and Carter-Robinson. The PI also plans to continue
to work with I. Rodnianski and J. Szeftel and settle the important
bounded curvature conjecture. Together with I. Rodnianski they plan
to adapt the recent work of Christodoulou, based on what he calls
the short pulse method, with which he was able to derive the first
result on the formation of trapped surfaces for solutions of the Einstein
vacuum equations. The PI and his collaborator believe that the new method can be signifficantly improved and applied to various situations.

If successful the proposal will give a better understanding of some
of the main theoretical open problems of General Relativity. The long
term hope is that some of the insight gained in the process will
influence related areas such Theoretical Physics and Numerical Relativity.
Of paramount interest to the gravitational wave experiments is to de-
sign numerical algorithms which can simulate, realistically, black hole
interactions. The PI also hopes that the interplay between geometric and an-
alytic methods, which are being developed, will influence other areas of
nonlinear PDE, Differential Geometry and Analysis. The PI plans to attract
and train a larger number of PhD students and postdocs, than he has
done so far, in General Relativity. The PI believes that the subject is going
now through an exciting period when important problems are solved and many new avenues of research are being open.